Postdoctoral Research Fellowships in Chemistry

Dr. Jeffrey S. Moore has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Moore's doctoral degree was from the University of Illinois under the supervision of Professor Samuel I. Stupp. Dr. Moore intends to continue research at the California Institute of Technology under the sponsorship of Robert Grubbs. Dr. Moore's area of postdoctoral research will be on the rational design of catalysts for stereo controlled ring-opening metathesis polymerization. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.